A Superthermal Source at NCState University

We are undertaking a program to construct a world-class, superthermal
ultracold neutron (UCN) source at a low power, university-based
reactor. In the past five years, research groups at Los Alamos National
Laboratory and the National Institute of Standards and Technology in the
United States have made great strides in the development of superthermal
UCN sources, demonstrating convincingly that the physics of these
sources is understood. Orders of magnitude improvement in available UCN
densities with superthermal sources may be within reach. The proposed
source will be comparable in strength to essentially all of the
facilities currently being planned in the U.S. and abroad, and
considerably stronger than any presently operating source. The
collaboration comprises nuclear physicists involved in fundamental
symmetries research and nuclear engineers who specialize in reactor cold
source and moderator development. Research programs using low-energy
neutrons are driven by the proven usefulness of UCNs for fundamental
nuclear physics measurements, such as placing limits on the static
electric dipole moments of nucleons and the measurement of the charged
weak current form factors of the nucleon. These measurements have
impact on some of the deepest and most fundamental questions confronted
by physics today. With the increased UCN flux available at superthermal
sources, the development of new applications for UCN as non-destructive
probes of surface hydrogen layers and large biological molecules may
also be posssible.